National Center for Excellence in Advanced Technological Education Presented by Community College for Innovative Technology Transfer (CCITT)

CCITT is a national consortium of twelve community colleges who are planning for a National Center of Excellence in Advanced Technology Education. Consortium members are: Brevard Community College, FL; Cuyahoga Community College, OH; Foothill College, CA; John C. Calhoun College, AL; Pasadena City College, CA; Pearl River College, MS; Prince George's Community college, MD; Thomas Nelson Community College, VA; and Houston, TX - based Consortium Members San Jacinto Community College, College of the Mainland, Alvin College, and Lee College. These twelve community colleges are linked through their involvement with, and long-term specialized instructional support for nine NASA Field Centers. Linkages are established with area universities and school systems to maximize articulation of technological education programs.The Center is developing plans to establish a national clearinghouse for curricular and faculty development programs as well as educational media supporting these programs to infuse science and mathematics into technological education programs. Curriculum design, faculty enhancement, outreach services, media development and product dissemination activities are being designed to enhance the quality of advanced technological education programs at community colleges and technical institutions nationwide. An advanced national telecommunications and bulletin board delivery system is being established to facilitate cost-effective sharing of information among faculty on a national basis, and to support creative models for distance learning.